SHF: Small: A Synergistic Multi-Layered Approach for Falsification of Specifications for Hybrid Systems

Hybrid systems, which combine discrete and continuous dynamics,
provide sophisticated mathematical models for automated highway
systems, air traffic control, biological systems, and other
applications. A key feature of such systems is that they are
often deployed in safety-critical scenarios and hence designing
such systems with provable guarantees is very
important. This is usually done through analysis of such
systems with regard to a given set of safety properties that
assert that nothing 'bad' happens during the operation of the
system. As more complex hybrid systems are considered, limiting
safety properties to a set of unsafe states, as in current methods,
considerably restricts the ability of designers to adequately
express the desired safe behavior of the system. To allow
for more sophisticated properties, researchers have advocated
the use of linear temporal logic (LTL), which makes it possible
to express temporal safety properties. This proposal develops
algorithmic tools for safety analysis of embedded
and hybrid systems operating under the effect of exogenous inputs
and for LTL specifications. The problem addressed
is the following: Given a hybrid system and a safety specification
described using LTL, can a feasible trajectory be constructed
for the system that violates the specification, when such a
trajectory exists? The problem is called the falsification problem.
The broader impact of the project is implemented through
course development, involvement in research activities of
undergraduate, graduate and postdoctoral students, efforts to
mentor underrepresented groups, and dissemination of concepts
through educational software developed at Rice.